Conformal Mapping

The Loewner differential equation was introduced in 1923 to study
extremal problems for conformal maps in the unit disc. Schramm's
recent discovery of the stochastic Loewner evolution SLE, the
Loewner equation driven by one-dimensional Brownian motion, has
opened up a new area of investigations involving conformal mappings,
probability theory and mathematical physics. It has led to the
discovery of new results in percolation and random walks, for
example, as well as the discovery mathematical proofs of results
known to the theoretical physics community. The Loewner equation is
also related to an algorithm for numerical conformal mapping
discovered by Marshall and K\"uhnau. The Loewner equation has as
input an arbitrary continuous function and produces a continuous
family of conformal mappings. Marshall plans to investigate
properties of the solutions of Loewner's equation under various
assumptions on the smoothness of the driving function, and
conversely to investigate how smoothness of the boundaries of the
associated regions implies smoothness of the driving function. This
is a classical problem where progress has been made only recently.
Marshall will analyze convergence and error-estimates for the
numerical mapping method called ``zipper'', closely related to
Loewner's equation, and improve the speed of convergence using
``generational'' techniques.

The main theme of Marshall's research program is to study conformal
mappings generated by the Loewner differential equation, and related
topics. Conformal mappings have been used as a tool in science and
engineering for many years. They are often used to change
coordinates from a complicated region to a simpler region like a
disc. Physical processes are modeled by partial differential
equations. A partial differential equation on the complicated two
dimensional region can be changed by a conformal map to a similar
equation on the disc, a setting where it is easier to solve.
Classically, this method was used for problems related to Laplace's
equation, such as electrostatics and two dimensional fluid flow.
Numerous non-classical applications have been developed in the last
three decades such as electro-magnetics, vibrating membranes and
acoustics, transverse vibrations and buckling of plates, elasticity,
and heat transfer. Fundamental research in conformal mapping and
conformal field theory are important directions in mathematics and
physics respectively. The fusion of Loewner's differential equation
and probability forms a bridge between these two areas. This project
is likely to increase the understanding of solutions to Loewner's
equation, as foundational work, which should increase its usefulness
in understanding stochastic processes. Broader impacts include the
continued improvement and dissemination of the conformal mapping
computer codes, which have been used by a number of investigators
not in mathematics, as well as mathematicians. Greater speed and new
knowledge of convergence should lead to wider applicability and use
of this algorithm. Broader impacts also include helping to cement a
stronger relationship between modern complex analysis and
mathematical physics, which should benefit both.